Novel superhard nanocomposite thin-film materials - from atomic-scale physics to macroscopic properties

The PI and his associates will carry out research to explore the development
of superhard materials, i.e., materials that have a degree of hardness
comparable to or larger than that of diamond. The search for such materials is
driven by both their importance in a wide range of applications and by the
challenge to design and synthesize them. Superhardness has recently been
achieved in a number of nanostructured composites prepared by means of thin-
film technology methods. While significant research is being conducted
worldwide on the synthesis and characterization of superhard materials,
further developments (such as optimization, modification, and manipulation)
are hampered by the lack of understanding of the atomic-scale mechanisms. The
proposed research will combine experimental synthesis and characterization
with quantum theory and molecular dynamics simulations to investigate the
mechanical, structural, and electronic properties of a series of
nanostructured composite films which are made up of nano-sized crystallites of
a titanium nitride or tungsten nitride embedded in an amorphous silicon
nitride or boron nitride matrix. The main objectives of the project are to
investigate the relationships between the processing conditions, residual
stress, hardness, microstructure and composition of these materials, and to
elucidate the mechanisms underlying superhardness at the atomic scale. The
role of the composite structure (type of interfaces, size and volume fraction
of nano-particles, etc.) in inhibiting dislocation activity will be elucidated
and guidelines will be extracted for the optimum design of superhard
nanostructured materials.

The successful fabrication of nanostructured superhard materials would have
significant impact on industry because they would be less expensive than
diamond. The new materials would be used as anti-corrosion and wear protective
coatings, cutting tools, load-bearing components, and micro-mechanical and
microelectronic devices. In particular, significant socio-economic benefits
would be achieved by the applications of the superhard nanocomposite materials
on high-speed cutting and forming tools for 'green' machining operations
without the aid of toxic coolants, which offers a clean work environment for
machining processes with reduced wastes. This project will also develop an
international collaboration involving both theorists and experimentalists in
the U.S. and Hong Kong. Both undergraduate and graduate students will be
involved in the research. K-12 teachers will participate in the project
through Vanderbilt's summer Research Experience for Teachers programs. New
knowledge will be translated into modules and lessons that can be used in K-12
classrooms. Thus, the project will contribute to education at various levels.